Algebraic Geometry of Triangulated Categories and the Foundations of Stable Homotopy Theory

8815084 Thomason Thomason will develop new methods in stable homotopy theory by introducing ideas from algebraic geometry. Among other things, this should clarify the privileged role of the stable homotopy category, give new insight into the relation between stable and unstable homotopy, and yield a new encompassing duality theory containing both Spanier-Whitehead and Serre-Grothendieck duality. Thomason will also build on his previous work in localization in the algebraic K-theory of schemes in this new context, to attack localization in the K-theory of non-commutative rings and in the Waldhausen K-theory of spaces.